I/UCRC Advanced Control of Energy and Power Systems

9401326 Shoureshi Electric power source has a major impact on the overall electric power distribution on a national level. The optimal process of energy generation, transmission, distribution, and utilization directly impacts economics of every industry. An Industry/University Cooperative Research Center for Advanced Control of Energy and Power Systems at Purdue University could provide a better mechanism to stimulate industrial innovation in the development of new technologies in the advanced control system or methods for energy and power systems. A number of companies have committed to support this effort. Currently there are seven sponsors for the Center committing approximately $400,000. The Principal Investigators are internationally recognized scientists who have the resources and capability to run this Center. The Program Manager recommends Purdue University be awarded $50,000 for the first year of a five-year continuing award. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which the university/industry interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.